Mathematical Sciences: Submanifold Geometry

The investigator proposes research in submanifold geometry. Particular questions are those concerning isoparametric submanifolds in space forms and generalizations to symmetric spaces or a Hilbert space. Also intended is a study of symplectic torus actions on infinite dimensional symplectic manifolds.